Exploratory Investigations of Mercury Barium Copper Oxide Superconductor Synthesis by Emulating Partial-Melt Processing

9322390 Schwartz This research is concerned with the study of key areas of mercury barium copper oxide superconductor related chemistry. Alternative routes are developed for mercury barium copper oxide superconductor synthesis with an emphasis on approaches that are relevant for bulk processing in particular, the proposed approach emulates partial- melt processing while avoiding the hazards and difficulties associated with hot liquid mercury. The results obtained will indicate future directions in mercury barium copper oxide superconductor processing and will form the basis for a subsequent peer-reviewed proposal to the NSF under the Advanced Materials Process Program. ***